Experimental Particle Physics

This award will provide support to a group from the University of Michigan to continue a research program in high energy physics. The group is participating in a experiment (UA6) at the Super Proton Synchrotron (CERN) during proton - antiproton collider operation. The experiment uses an internal hydrogen gas target and studies high momentum transfer single particle production, focussing on photons, production of e+e-pairs, and low momentum transfer elastic scattering in both proton-proton and antiproton-proton interactions. The ability to compare direct photons from proton-proton and proton-antiproton interactions with the same apparatus yields a measurement of the gluon momentum distribution in protons and the scale parameter lambda used in the theory of quantum chromodynamics.